Realistic Molecular Dynamics Simulations of Proteins in Mixed Solvents

9407903 Daggett This is a Research Planning Grant Award. The overall goal of the proposed research is to pursue realistic molecular modeling studies relating to protein stability, structure, and folding. Specifically, mixed solvent systems will be developed to better mimic experimental conditions in molecular dynamics and simulations. With these more accurate solvent representations, current studies in the area of protein folding will be extended by simulating the unfolding of ubiquitin in denaturant. The molten globule state of ubiquitin has been characterized in 60% aqueous methanol solution at low pH independently by three research groups. The results are in opposition, with one study suggesting that the molten globule conformation is almost completely native-like (by hydrogen exchange), while the others identify native-like and random coil regions of the protein (by 2- and 3-dimensional NMR). In this project, simulations under these conditions will be performed to model the molecular details of the molten globule state of this protein. These simulations should shed light on the experimental discrepancies. In addition, by comparing the detailed solvent-protein interactions occurring in pure water versus an aqueous methanol solution, it should be possible to address how the solvent affects the stability of proteins in various conformations (e.g., native, partially unfolded and fully unfolded). Furthermore, the question of how the unfolding pathway differs as a function of temperature, pH and solvent conditions will be investigated. %%% A knowledge of the structural and mobility properties of proteins is essential to understanding their properties and functions. For globular proteins, internal motion is important to stability, catalysis, ligand binding, macromolecular recognition and protein folding. The solvent environment necessarily plays a critical role in these processes. Computer-assisted simulations can provide detailed information in th ese areas that often cannot be obtained experimentally, especialy in the case of protein folding where it has proved difficult to characterize proteins during the folding process. Protein folding is one of the fundamental unsolved problems in molecular biology and can no longer be considered an esoteric scientific topic. To quote Science magazine on the subject, "Why are the stakes so high? One reason is that the payoff isn't merely theoretical ... The right answer is going to make a difference not only to protein chemists but also to all of biotechnology." (Hoffman, 1991). Protein folding is an area where experiment actually needs theory, as it is unlikely that experimental studies will ever be able to provide structural information about protein folding in comparable detail to that available for native proteins. Computer power has now reached the stage where protein unfolding can be simulated in water with all atoms present. The next logical step is to perform simulations with more accurate representations of the environment, focusing on proteins for which structural experimental data of folding intermediates are now available. ***